RUI: Gene Flow, Selection, and the Evolution of Premating Barriers

A grant has been awarded to Merrill Peterson, Western Washington
University, to study the evolution of premating barriers between two
hybridizing beetle species. The research combines lab and field studies to
determine the costs of hybridizing across a 75km-wide zone of
hybridization. In measuring these costs, the research will take into
account the degree to which multiply-mating females preferentially use
sperm from same-species males, and measure material benefits females may
gain from hybrid matings. This study will also determine the balance
between selection against hybridization and the rate of genetic exchange
with populations outside of the zone of hybridization, a process that will
tend to counter the effects of selection.
This research program will address long-standing questions
regarding the evolution of reproductive barriers between species, using a
novel geographic perspective. In so doing, it will provide answers to
fundamental questions in speciation research. The grant will also support
the training and mentorship of underrepresented undergraduates through a
summer internship program, Minority Opportunities for Research on Evolution
(MORE). Participants in MORE will get hands-on experience and training for
careers in biological research.